MRI: Development of Haptic Instrumentation and Software for Computer Science Research and Training Using Surgical Simulation as the Application

EIA-0116616
Roger W. Webster
Millersville University

MRI: Development of Haptic Instrumentation and Software for Computer Science Research and Training Using Surgical Simulation as the Application

This is a proposal for instrumentation development under the Major Research Instrumentation (MRI) program to support research and student training in the area of haptic human-computer interaction using surgical simulation as the application. The design and development of haptic surgical instruments which attach to a commercially available device will enable users to practice virtual surgery and will enhance the human-computer interface in realistic simulation applications.